Changing Ecological Approaches to Development: Organism - Environment Mutualities; September 29 - October 2, 1994; Storrs, Connecticut

9409295 Zukow-Goldring ABSTRACT A conference on "Changing Ecological Approaches to Development: Organism-Environment Mutualities" will be held at the University of Connecticut, September 29-October 2, 1994. Participants represent an interesting mix of perspectives and will include researchers who normally do not participate in the same conferences nor publish in the same journals: those who work in ecological psychology and those who work in epigenetic and dynamic systems. Leading researchers will each discuss the same set of questions in light of their particular work to provide coherence among the presentations. Discussants will represent different theoretical approaches in order to challenge the presenting participants. A book based on the conference presentations will be published by the American Psychological Association. ***